Symposium to Assess Some Areas in Contemporary Fluid Mech- anics

Partial support will be provided for a symposium to be held at the California Institute of Technology, January 10-12, 1985. The symposium will be international in scope and will be titled 'Fifty Years of Fluid Mechanics.' Speakers will include representatives from physics, geophysics, theoretical physics as well as the engineering disciplines. The symposium will offer a unique opportunity to look into the future and assess the next 50 years of fluid mechanics.